Joint-USSR Research Project using the VLA and the Ratan 600 to observe the Sun

the largest radio telescope in the United States; called the very large array or the VLA, and the Soviet Union's largest radio telescope, called the RATAN 600, will be used to observe the sun for ten days each year during a three-year period. This will lead to a greater understanding of the radiative output of the sun; it is this output that powers all global changes on the Earth. Our joint research project will enhance the scientific return of both instruments beyond that is expected from using either one alone. Spectra and polarization data taken with the RATAN 600 at eleven wavelengths between 0.9 and 20.0 cm will be combined with VLA observations of high angular resolution at 2, 3.6, 6, and 20 cm to determine radiation mechanisms and coronal magnetic field strengths for the various sources of intense, quiescent solar radiation. *** //